GEM: Modeling the Calm Magnetosphere within the GEM Geospace General Circulation Model

This project will develop a generalized model for the equilibrium conditions for the Earth's magnetic tail during conditions when the magnetosphere is characterized by (1) quasi-steady convection, (2) the growth phase of magnetic substorms, and (3) directly driven solar wind effects. It will use analytic methods in conjunction with a computer simulation code that will ensure appropriate topological conditions and conservation of flux and/or entropy. The result will be an equilibrium model that can be embedded in a Geospace General Circulation Model, or other global magnetohydrodynamic (MHD) simulations of the magnetospheric system.